Dynamics of R.F. Discharges for Materials Etching

Proposal Number: ECS-9529658 Principal Investigator: Michael Lieber man and Allan Lichtenberg ABSTRACT Dynamics of R.F. Discharges for Materials Etching Fundamental research on a novel in situ high-density large-area plasma source will be carried out. Microwave driven and rf-inductively coupled plasma sources are widely used in the semiconductor and flat panel display industries for etching and deposition processes; moreover their use has become critical for VLSI circuit and thin film transistor (TFT) production. Large area high density sources will play an increasing role in processing as feature sizes shrink while wafer and TFT sizes increase. The program involves experiments and analytical models for a large area plasma source that is inductively excited by an RF traveling wave launched onto an antenna coil embedded within the plasma volume. Such a source has favorable properties for scaling to large sizes. Plasma in the source will be generated in a rectangular box 71.1 cm x 61.0 cm x 20.3 cm containing a substrate holder large enough to study processing of silicon wafers as large as 300 mm in diameter and flat panel glass substrate sizes as large as 360 mm x 465 mm. A critical issue to be examined in the experiments is whether traveling wave excitation of a coil embedded in the plasma can generate uniform plasma over very large areas.